Collaborative Research: Branch Elimination by Condition Merging

Conditional branches are expensive. Branches require a significant
percentage of the execution cycles since they occur frequently and can
cause pipeline stalls. In addition, branches result in forks in the
control flow, which can prevent other code-improving transformations
from being applied. We plan to develop path profile-based techniques
for replacing the execution of a set of two or more branches with a
single branch on a conventional scalar processor. We propose to
improve performance by merging the conditions of two or more branches
into a single condition. Previous approaches have accomplished
such merging of conditions that have either only involved a single
variable or have required special hardware to merge multiple
conditions together. Techniques will be developed to produce a merged
condition involving multiple variables that can be used to bypass the
code testing the original set of conditions on a conventional processor.
Merging conditions may be very good fit for run-time optimization
systems, which optimize frequently executed paths during the execution
of a program.